Collaborative Research: The Design and Rating of Securities

The purpose of this project is develop economic models for analyzing the design of securities, considering the roles of market liquidity, security ratings, credit enhancement, and the distribution of information across investor groups. Among the questions to be addressed are: What is the role of security rating agencies in mitigating the costs of illiquidity, and how is security design affected by that role? Is there a useful role for rating agencies beyond the traditional role of evaluating default risk? Do informational asymmetries and other distinctions among investor groups cause clientele effects in security design? The results of this project are intended to further our understanding of how security market innovation and rating are affected by information held asymmetrically among issuers, underwriters, broker-dealers, and groups of investors. The project may also include results that in will assist security issuers, underwriters and rating agencies in the efficient conduct of their businesses. In addition, the research may also uncover welfare implications that will be useful to decision- makers in formulating regulations regarding the use of security ratings.